Examination of the Fault-Propagation Fold Model for Seismic Hazard, LA and Ventura Basins

9416326 Hager This project will assess the application of the fault propagation fold (FPF) model to understanding potential earthquake hazards. The kinematics of the FPF model are commonly used to explain the occurrence of earthquakes in connection with blind thrusts, but the mechanics of the FPF model have received relatively little study. This study will first determine the geometry and co-seismic slip of the rupture plane of the Northridge event, then determine whether slower anelastic deformation is either permitted or required. These finding will be incorporated into a finite element model to produce an alternative mechanical model to the FPF. It will be determined if a basal detachment fault, a prerequisite of the FPF model, is necessary or even capable of generating large earthquakes. The results of this study will aid understanding of earthquake mechanics, the geometry of the structures beneath the Los Angeles basin and San Fernando Valley, and the potential for earthquake hazards in regions of blind thrusts.